A Co-Laboratory for ATM Network Research and Development

9553368 Vetter This project proposes to acquire a local area asynchronous transfer mode (ATM) network testbed for the purpose of creating a state-of-the-art co-laboratory where researchers can work on new, high-speed network approaches to problems in distributed database management, network protocols, multimedia systems, and remote distance education. Another objective is to enable and support collaborative research efforts among investigators in North Dakota's research universities. The proposed computing and network infrastructure should enable additional research opportunities and increase external grant competitiveness. Finally, the various research and development aspects of this project will be integrated into the existing undergraduate and graduate courses. In particular, improved educational opportunities for students will result from the virtual laboratory application developed as part of this effort. Long-term project sustainability will be achieve (l) by future investigator grants, (2) existing and newly formed industry/university partnerships, and (3) by a commitment by North Dakota's Information Technology Services to maintain and service this infrastructure when the grant period expires. Significance of Activity: The diversity of traffic generated by newly emerging multimedia applications is currently very difficult to support with existing communication networks. Existing networks simply do not provide the transport facilities necessary to efficiently support these increasingly important user applications. The major outcome of this project will be an improved basic science and technology networking infrastructure in North Dakota.